PHYSICS: THEORY OF ELEMENTARY PARTICLES

Elementary particle physics research is at the verge of a major
revolution, owing to new data and new theoretical ideas. A broad program
of research in theoretical elementary particle physics will be conducted,
with the aim of trying to understand the origin of spacetime and of
matter, the masses of the elementary particles, and the forces acting on
these particles. The possibility of spatial dimensions beyond the three
we have already observed will be considered. New insights into the origin
of matter though new experimental results on particles containing the
"beauty" quark and on neutrinos will be explored. The connections between
superstring theory (the only candidate for a theory of all the basic
forces, including gravity) to experimentally accessible processes will be
investigated. So too will be the basic structure of quantum field theory.